Travel Grant to Attend National ACS Meeting

Travel funds are provided for Donna Nelson at the University of Oklahoma and five of her undergraduate students to travel and attend the August 2001 National Meeting of the American Chemical Society in Chicago, IL. Donna Nelson is an invited speaker for two talks and the students will have two poster presentations. The subject of these talks and presentations is the diversity of the faculties of the "Top 50" chemistry departments.